A Planning Grant to Enrich and Enlarge the Michigan AGEP Alliance

The Michigan AGEP Alliance (MAA) is a partnership of University of Michigan, Michigan State University, Wayne State University, and Western Michigan University. Over the past six years, the MAA has created a sustainable community that supports the academic success of students from underrepresented minority (URM) groups who are earning doctoral degrees in engineering, physical science, life science, mathematics, social and behavioral sciences, and encourages and prepares them to pursue careers in academia. Based on their experience thus far, and informed by research on factors that promote degree completion and transition to faculty careers, they have identified promising strategies to leverage the value of the investments that NSF and our universities have made in the MAA. They request support to enrich the intellectual and programmatic foundations of their alliance. Intellectual Merit: The new directions they will explore include: 1) Adding a fifth partner institution: Michigan Technological University—a small, rural STEM-dominant institution closely located to a large Native American population; 2) Expanding their focus on the postdoctoral experience by engaging URM postdoctoral fellows in programming designed to meet their professional needs, and linking them with URM Ph.D. students so that both groups may benefit from a realistic appraisal of the opportunities available to them in postdoctoral training and the pathways to faculty positions; 3) Finding the synergy that comes from integrating students and faculty from NSF-supported social, behavioral and economic sciences (SBE) with faculty and students who participate in AGEP programming in STEM; and 4) Adapting technology to increase opportunities for interaction and collaboration across the MAA partner and with other AGEP institutions, and for delivery of selected professional development programs. This grant will underwrite planning to accelerate the capacity of the alliance to carry forward the mission of increased diversity in our STEM community. Broader Impact: By strengthening the ability of the alliance to support the academic success of URM graduate students, and by creating mechanisms to support the success of URM postdoctoral scholars, they will increase the representation of minority scientists in the professoriate.